The Coupled Radical Chemistry of the Lower Stratosphere

The research funded by this proposal will focus on unresolved questions about the chemistry of ozone catalysis (HOx, NOx, and ClOx) in the lower stratosphere. Laboratory experiments will address rate constants and mechanisms of reactions including OH+NO2, OH+HONO2, O+O3, Cl+RH, Cl+O3, and OH+HCl over the pressure and temperature ranges of the lower stratosphere, (50-200 torr). Experiments will employ a high pressure flow (HPF) technique, producing data that is distinct from and independent of pulsed laser photolysis studies. The HPF method enables rigorously wall-less experiments at arbitrary temperatures, while retaining the advantages of well-defined thermal radical distributions with no interference from other reagents. Radical measurements will be carried out with a combination of laser in-duced fluorescence (LIF), resonance fluorescence (RF), and infrared cavity ringdown laser absorption spectroscopy (IR-CRLAS). In situ FTIR absorption and in situ GC/MS analysis will insure both accurate quantification of molecular species and strict exclusion of contaminants, and laser doppler velocimetry will provide highly accurate velocity measurements. The experimental work will be combined with theoretical calculations to provide insight into the factors controlling these rates and mechanisms, which in turn will greatly increase confidence in the data. These calculations will focus simultaneously on the factors governing the potential energy surface for each reaction and on the dynamics on each surface.